International Symposium on Theory of Atomic and Molecular Clusters; Richmond, VA

The symposium will bring together scientists to discuss the theoretical developments that facilitate fundamental understanding of the science and technology of atomic clusters, nanostructures, cluster assemblies and biological systems and will highlight recent experimental observations that require theoretical attention. It will emphasize how finite size, low dimensionality, composition and special geometric arrangement can lead to novel behaviors in nanostructures that can be tuned by size, composition, and geometrical arrangements. The symposium will also promote an exchange between scientists studying inorganic nanostructures and those studying nanoscale biological systems such as proteins, cells, enzymes and DNA. This will enable cross fertilization of ideas and stress the interdisciplinary aspects of these emerging fields. The program includes several experimentalists to encourage synergy between theory and experiments. A large participation from graduate students will ensure nurturing the future leaders in these areas.